Tech*Know: Integrated Instructional Materials for Technological Literacy

This proposal is for the creation of 20 modules of instruction that would be based on technology education, problem-solving activities that are part of the curriculum of the Technology Student Association (TSA), and that are consistent with standards for technological literacy as published by the International Technology Education Association (ITEA). Science and mathematics content would be added to these TSA activities. The grade levels would be middle and high school. For the middle school level units include Cyberspace pursuit, Dragster design challenge and Flight challenge. At the high school level units include electronic systems, manufacturing prototype and radio-controlled transportation. The project will extend over four years. Materials will be piloted and field-tested by TSA and non-TSA teachers, in North Carolina, Florida, Oklahoma and Virginia.